Rapid Development and Testing of Behavioral Models

Armstrong This research is on methods to create behavior models that accurately represent the functionality and timing of complex devices. The work is on developing a "Modeler's Assistant" as a base for structured development of behavioral models. Specific problems being solved are: developing a process primitive set for the Modeler's Assistant, developing and evaluating performance measures for structured behavioral model development, developing a natural language interface for the Modeler's Assistant, and building into the Modeler's Assistant the capability to automatically generate tests for any behavioral model which has been constructed by the system. Behavioral models are being expressed in the high-level language, VHDL.